VII International Workshop on Advanced Computing and Analysis Techniques in Physics Research; Fermi National Accelerator Laboratory; Octobert 16-20, 2000

The PI proposes to organize and carry out the VII International Workshop on Advanced Computing and Analysis Techniques in Physics Research. The goals of the workshop are to discuss issues in advanced scientific computing and foster closer interactions between computer scientists and physicists with the hope of generating initiatives that will have a significant beneficial impact on research.